Logic, databases and parallel computation (Information and Computer Science)

The goal of this research is to develop and test efficient, parallel evaluation methods for database and knowledge base query languages. We will use the theory of parallel algorithms to identify and realize the potential parallelism in new, logic-based query languages. For this we will investigate the fine-grained parallelism of primitive symbolic operations such as unification, term matching, congruence closure and special fixpoint operators. We will develop and implement parallel algorithms for recursive logical queries on state-of-the-art multiprocessor systems. We will also examine the use of equational theorem-proving techniques for database manipulation and design. The efficient integration of such techniques with recursive logical queries is an important step in combining functional and logic programming in a structured database context. In recent years, basic query languages, such as the relational calculus, have been augmented by adding new programming features. With these new features, database and knowledge base languages are now moving closer to full programming languages. The optimization and efficient evaluation of these languages is crucial, if one is to combine the high performance of database technology with the power of computing methods from artificial intelligence. New parallel (multiprocessor) machines offer the raw computational power for realizing this goal. But to harness that raw power for database and knowledge base applications, completely new algorithmic techniques - adapted to parallel evaluation - are essential. Such techniques will be developed by this research.